SBIR Phase I: Coherence-gated Backscatter Particle Sizing

This Small Business Innovation Research (SBIR) Phase I project will show proof of principle for
an innovative optical technique using backscattered laser light to perform particle sizing
measurements. Limitations of existing systems include the need to measure transmitted
instead of reflected light, the inability to make accurate measurements in dense particles
fields, and the inability to characterize particle shape. Phase I research will lead to the
realization of a unique diagnostic system capable of fast, non-invasive measurements in
media of high turbidity; use of backscattered, not transmitted, light; solid-state fiber optic
construction; cost effective gain-guided laser diodes for light sources; and assembly
from commercial-off-the-shelf components.

Particle sizing techniques are critical for process characterization and control in diverse
areas of manufacturing and research. The worldwide market for particle sizing
instruments has been estimated at $300 million. Industries using particle sizing include
agrochemical, cement, ceramics, cosmetics, personal care, soil testing, wastewater
processing, paints, inks and other surface coatings. The proposed system will introduce
a patentable new technology to the field of particle sizing by the novel extension of a
proven commercial technique.